"Seismic Torsional Effects In Multistory Buildings"

This research study is a joint collaborative research effort between an academic research unit and a professional design office to investigate seismic torsional effects in multistory buildings. Two projects (BCS